Calculators and Mathematics Project - Los Angeles (CAMP-LA)

The electronic hand-held calculator is a tool that can be used as an integral part of the elementary school mathematics curriculum. With calculators so abundant and inexpensive, each child should be able to have a calculator for appropriate use in mathematics and in other subjects where mathematics can be applied. Although some materials are available that support the use of the calculator in the elementary school, there exists currently no coherent set of materials that looks at the curriculum in a new light, assuming that the calculator is an essential tool to be used in learning and doing mathematics. This project will develop a model for change in the K-6 mathematics curriculum, based on the assumption that every child has a calculator. Anticipated changes include diminishing time spent on certain topics (such as long division) and increasing time spent on other topics (such as problem solving and reasoning). The project will develop a set of calculator-based student materials for Grades K-6 designed to be flexible enough to stand alone or be supplementary; a set of teacher materials that will include a guide for teaching mathematics using calculators and student evaluation materials with protocols for evaluating student work when engaged in activities such as problem solving; and materials on the use of calculators in an elementary setting, to be used in the preservice preparation of teachers. The project will be a collaborative effort of the California State University at Fulleraton and the Los Angeles Unified School District. One of the goals of the project is to create a replicable model for university-school district cooperation in curriculum development and teacher education.